Maryland Technology Partnership for Innovation (MTPI)

0090437
DeLoach

This award is to Morgan State University to support the activity described below for 24 months. The proposal was submitted in response to the Partnerships for Innovation Program Solicitation (NSF 0082).

Partners
The partners for this award include Morgan State University; Maryland Technology Development Corporation; Baltimore Development Corporation's Emerging Technology Center; Chesapeake Bay Regional Technical Center of Excellence; Prince George's County Economic Development Corporation.

Proposed Activities
The activities include technology transfer; business incubation; education and workforce development; strengthening local economies in targeted economically distressed communities; utilization of science and technology of federal laboratories in Maryland.

Proposed Innovation
The innovation goals are creation of economic wealth through technology transfer of research and development in the universities and federal laboratories in Maryland to create new companies and new jobs; creation of infrastructure to enable innovation; strong emphasis on education and training.

Potential Economic Impact
The activities will provide general economic well being in both rural (Maryland Eastern Shore) and urban (Baltimore and Prince George County) areas to reach under-represented groups.

Potential Societal Impact
The potential benefits to society include involvement of under-represented groups in the innovation enterprise in both rural and urban areas by creating new companies and new jobs for the disadvantaged and provision of the needed training to enable innovation and empower people to create economic well being; higher paying jobs in the region.